In Situ Renewal of Deteriorated Sewer Manholes

9361317 Shook This nation has more than 11 million manholes which now need or soon will need to be rehabilitated. Current techniques are either too costly or do not last. This research speaks to this problem through development of an innovative technique of restoring many of these structures at less than half the cost of the reliable methods available today. The concept uses a newly developed applicator which can apply combinations of portland, high-alumina, or polymer cements. Fundamental to the requirement of a repair which lasts more than a few months is application of sufficient thickness of a strong but inexpensive cement which when needed can be protected with a coating of chemically resistant material such as latex or urethane. Key to the proposed process is the ability of the applicator to place uniform thicknesses of cement of sufficient thickness without costly forms and wither the need for people to enter the manhole. The latter not only reduces costs but improves safety.